CAREER: Reimagining Mathematics Intervention Through Youth Participatory Mapping and Community Design

CAREER: Strengthening Mathematics Intervention Through Youth Participatory Mapping and Community Design

Where students learn mathematics matters. Learning unfolds across classrooms, intervention programs, homes, and community spaces. Mathematics intervention is a widespread and resource-intensive educational support that serves millions of students each year through pull-out programs, small-group instruction, tutoring, after-school programs, and other services. Research has shown that intervention’s long-term effectiveness depends not only on what students learn but also on their ability to connect and build on learning across settings over time. These environments are often organized in isolation, creating fragmented supports that can disrupt learning continuity and limit the development of robust mathematical understanding. Despite substantial investment in mathematics intervention, little is known about how students experience mathematics learning across the multiple environments they navigate or how connections within and across those environments shape opportunities to learn. This project brings together students, families, educators, and community partners to investigate how learning environments shape access to mathematics, instructional quality, and continuity of learning. Elementary students will participate in this project as data scientists and co-researchers, documenting how spaces, relationships, and movement influence learning experiences. Findings will inform the design of more coherent and responsive systems of mathematics support and strengthen coordination among schools, families, and community organizations.

This project will employ community design research to investigate how youth participatory mapping and collaborative professional learning can strengthen mathematics interventions for learners. The study will integrate two interwoven components: (1) the Youth Mapping Education Program, in which students engage in spatial data inquiry to document and analyze their mathematics learning experiences across school, home, and community settings, and (2) a Spatial Data Professional Learning Community, in which educators, families, and community partners use youth-centered spatial data to inform instructional and organizational decision-making. Co-designed with teachers, families, and community organizations, the project will engage approximately 100 students in Grades 3–5, including a longitudinal case study of focal students. Using a mixed-methods design, the research combines narrative inquiry, participatory mapping, geographic information systems (GIS) spatial analysis, social network analysis, and classroom participation analytics to identify patterns of supportive spaces, key relationships, and barriers to movement and access across environments and to examine how collaborative improvement efforts influence those conditions over time. The project will generate foundational knowledge and advance theory at the intersection of mathematics education, human geography, and organizational learning by conceptualizing how space organizes participation and learning continuity. Outcomes will include a youth mapping education program, collaborative professional learning framework, spatial inquiry tools, and new methodological approaches for studying and improving mathematics intervention.